1998 Gordon Research Conference on Tribology "Wear and Contact Damage"

9813387 Rigney Travel support is provided for graduate students and new investigators to attend the Gordon Research Conference on Tribology, to be held in Holderness, NH, June 28 - July 3, 1998. The theme of the conference is "Wear and Contact Damage". ***